Cell-Cell Influences on the Form of an Identified Motor Neuron

Kent 9604334 Steroid hormones are known to exert profound developmental and behavioral effects on organisms ranging from insects to humans. One way that steroids exert these effects is by influencing the shape and structure of specific neurons in the central nervous system. The shape of each neuron will determine, in part, the numbers and types of connections it makes with other neurons and these connections, in turn, will dictate or influence behavior. As a result of development, aging, injury, or disease, neuronal connections may be altered and an individual's behavior changed. Although steroid hormones have been implicated in playing a role in these processes, the mechanisms by which steroids influence individual neurons and their connections is still poorly understood. Dr. Kent's research is directed towards understanding how a steroid hormone can influence the shape of an neuron. By using individual steroid-sensitive neurons from a simple model insect system, she will define the conditions under which steroid hormones exert their effects on neuronal shape and size and then identify cellular and molecular mechanisms underlying these steroid induced changes. Information gained in the course of these studies will contribute to a growing understanding of steroid action on the nervous system and ultimately to the development of strategies ranging from the control of insect pests to the treatment of birth defects, age-related diseases, neurological damage, and psychiatric disorders.